Undergraduate Faculty Enhancement: Animation and Portfolios in Pre-Calculus, Calculus and Differential Equations

9353967 Wilkinson Borough of Manhattan Community College has been a leader of the Calculus reform movement. Their present precalculus, calculus and differential equations curriculum emphasizes students working in groups and using computer graphers and computer algebra systems to create written honors projects and animated mathematical movies. It adapts the model developed by Uri Treisman at Berkeley to a large urban non-residential college, and moves beyond the Treisman model in its strong emphasis in technology and alternative assessment models. This project builds on their previous calculus curriculum projects. They are offering two regional summer faculty workshops for each of two summers. One workshop is for faculty inexperienced in technology and focuses on the preparation of collaborative computer portfolios in precalculus and calculus. The second workshop for faculty more experienced in technology and is emphasizing the use of new computer technology (e.g., Macromind Director) that animates graphs, and allows students to create mathematics movies in precalculus, calculus, and differential equations. ***